III-COR-Small: Efficient Matching for Large Real-World Schemas and Ontologies

III-COR-Small: Efficient Matching for Large Real-World Schemas and
Ontologies

PI: Maria Cruz

This project aims at bridging across heterogeneous data and will
impact applications in multiple fields, including emergency
management, biomedicine, digital government, and environment. In
particular, this project extends the state of the art in schema and
ontology matching, and therefore in data integration, by testing and
evaluating methods and strategies that establish relationships among
semantically related concepts in heterogeneous data sources.

The following research issues are addressed: (1) Design of methods and
algorithms for schema and ontology matching that operate at different
levels of granularity (e.g., concept, structure); (2) Development of a
prototype of an integrated system that supports the visualization and
manipulation of large schemas and ontologies in addition to the
developed matching methods and algorithms; (3) Test and evaluation of
the above methods and system prototype in terms of their
effectiveness, including accuracy (precision, recall) and efficiency
(execution time). From an educational viewpoint, this project impacts
the design of courses and the research training of graduate and
undergraduate students, and of a postdoc.

Further information about this project can be found at:
http://www.cs.uic.edu/~ifc/grants/SchemaOntologyMatching/